Functional Quantum Waveguide and Single Electron Structures

This proposal presents a two-year research project to investigate the functionality of devices based on single electron charging and quantum waveguide phenomena. This is a collaborative program of work between the University of Oregon and ETDL, Fort Monmouth. The objective of the proposed research is to achieve specific devices characteristics by designing an array of gate electrodes to control simultaneously the charge storage and transport properties of the two-dimensional electron gas in a semiconductor heterostructure. The dimensions and spacings of the electrodes will be sufficiently small that the width of the undepleted regions in the electrons gas will be comparable to the Fermi wavelength. In this manner we will realize interconnected quantum waveguides and cavities. Following the results of the previous collaborative award, we have identified two particular devices to study; a lateral resonant tunneling diode that will act a coupler (switch) between two waveguides, and a dynamic memory element. We will fabricate these devices using electron-beam lithography, and characterize their transport properties from DC to above 1GHz over the temperature range 77 - 0.05 Kelvin.